Evaluation of the Statewide Systemic Initiatives Program RFP SEE 91-012

SRI International, Inc. in collaboration with the Consortium for Policy Research in Education (CPRE) and Policy Studies Associates will conduct an evaluation of the Statewide Systemic Initiative Program (SSI). They will conduct three central data collection activities. First, they will track the progress of the individual SSI projects through regular interaction with the state evaluators and an annual survey of principal investigators to obtain uniform and comparable data about project budgets and activities. In addition, each SSI state will be assigned to a particular individual on the staff who will be responsible for updating information about the project. Second, case studies will be conducted in several states. Third, a system of indicators of the state of science, mathematics, and engineering education will be built and maintained. Whenever possible, all 50 states will be included.